1997 Superconductivity Gordon Conference to be held January 12-17, 1997

9614729 Finnemore Technical abstract: The 1997 Gordon Research Conference on Superconductivity will devote one week to the research area of superconductivity, with emphasis on High Tc cuprate materials. The focus will be on order parameter symmetry and the properties of vortices. Other topics will be discussed, the participants will include world leaders in this area. The conference will be interdisciplinary, and will bring together leading scientists from academia and industry to critically assess the current level of knowledge and what remains to be learned in the future. NSF support will provide financial assistance to young investigators. Non-technical abstract: The 1997 Gordon Research Conference on Superconductivity will devote one week to the research area of superconductivity, with emphasis on High Tc cuprate materials. The focus will be on order parameter symmetry and the properties of vortices. Other topics will be discussed, the participants will include world leaders in this area. The conference will be interdisciplinary, and will bring together leading scientists from academia and industry to critically assess the current level knowledge and what remains to be learned in the future. NSF support will provide financial assistance to young investigators. ***